EAGER: Time Traveler

This project will develop a bioinformatics computational platform that crosses the disciplinary boundaries of art and science. It connects 3-D object animation with computational fluid dynamics, heat and mass transfer engineering, morphology, physiology, behavior, ecology, evolution, earth sciences, remote-sensing and GIS technologies. This research addresses the question: "What has been/is/will be the role of climate, topography and plant environments in defining animal body sizes, shapes and distributions in the geological past, the present and future?" This work will include the use of state-of-the-art mechanistic models of global and local environments and selected terrestrial and marine vertebrates and invertebrates. The approach is very cross disciplinary involving genetics, biochemistry, and engineering/physics-based heat, mass and momentum transfer models of animals in terrestrial and marine environments. The investigators will be modeling mobile animals that can select their local physical environments on an hourly basis throughout the year and for multiple years to define growth potential, reproductive potential and distribution limits. The results of this project will generate computational and database resources and tools for scientific research, high school and college student instruction and interactive lay public access to computer explorations of how ancient, modern and future environments have altered, or will alter how and where species can successfully exist on earth. This research will develop resources useful to governmental regulatory agencies, university and NGO scientists as well as policy specialists, and will lead to advances in understanding the biophysics, energetics, behavior, ecology and evolution of animals. This work will create opportunities to pique the curiosity of young students and the lay public, and create a virtual environment where they can explore the constraints that define the kinds of animals that can successfully survive, grow and reproduce in local environments. These computer resources will be developed and made available on a website accessible via http://www.zoology.wisc.edu/faculty/Por/Por.html.